SGER: Centralized Sensing and Control of Multiple Mobile Agents

9615690 Khoshnevis This award funds investigation of the concept of a single centralized station to provide supervision, sensing, control, intelligence, and perhaps power to a colony of robots, organized for the performance of specific tasks. The consequence of such an approach is that each robot can be made much simpler, smaller, and less expensive, since requirements for on-board sensing, control, and intelligence are reduced or even eliminated. Human capability for supervising and controlling multiple robots may also be augmented by this approach. The issues to be studied concern tradeoffs in control (bandwidth, accuracy, and channel capacity); relations between numbers of controllable robots and task suitability; and representation for control.